Psychobiology Laboratory Improvement Program

This project has improved the psychobiology laboratory at the institution, and is affecting upper division courses in both the psychology and biology departments. Equipment includes an 18-channel computerized locomotor-activity monitor for rodents. Monitoring of locomotor activity is an extremely convenient procedure for the study of the temporal organization of behavior. As part of ongoing courses, psychology students monitor locomotor activity to learn about the sensory and neural mechanisms of circadian rhythmicity. Biology students monitor activity to learn about the endocrine control of estrous cyclicity. This new, computerized equipment also allows all students more individualized experience in the laboratory and provides a continuous recording of animal activity over time. Overall, the project will provide a significant improvement in the training of students in psychobiology and will serve as a model for other institutions involved in undergraduate teaching of psychology and biology.